Constructing Nanoscale Molecule Sorters Powered by F1-ATPase Motors

The primary objective of the proposed research is to construct a nanoscale molecule
sorter powered by F1-ATPase (see illustration below). Five milestone goals have been
established as part of this overall objective:
1.) Evaluate the physical and chemical properties affecting the binding/elution of
target molecules to the collector;
2.) Design and fabricate the collector portion of the molecule sorter, and demonstrate
its ability to specifically bind molecules;
3.) Design and fabricate the storage portion of the collector;
4.) Integrate of F1-ATPase with fabricated structures to assemble the final molecule
sorter; and
5.) Demonstrate the functionality of the integrated molecule sorter, and evaluate its
performance and efficiency.
The molecule sorter will consist of two parts: the active collector and the connected
storage units. The engineered nanoscale collector will be coated with a-green fluorescent
protein (GFP) IgG molecules, and will be actuated by F1-ATPase motors positioned in
nickel posts. This collector unit will remove GFP from the surrounding solution, and
transfer them into the storage units (containing an oil-based medium) through changes in
hydrophobicity and electrical potential at the liquid interface. Connective conduits lined
with electrodes will generate an electric gradient, and thus act as an osmotic pump to
concentrate GFP in the end reservoirs. The rate and efficiency of collection will be
evaluated using fluorescent imaging of the end reservoirs. Construction of this device
will establish an adaptable system for constructing intracellular-based molecule sorters
capable of directly interfacing and utilizing cell physiological responses